Investigating Earth’s crust beneath New England using dense seismic arrays

Earth’s crust, its shallowest layer, is roughly 25 miles thick beneath the continents. Earth’s crust is made up of different rock types with different geological histories, and over geological time it has been shaped by a range of plate tectonic processes. Deciphering the structure of the crust and the distribution of different rock types is difficult, largely because most of it lies beneath the surface and is inaccessible to us. This project will construct the structure and history of the Earth’s crust in New England using geophysical techniques that are similar to medical imaging strategies such as CT scanning. This project serves the national interest of promoting the progress of science by exploring the crust, which contains many important resources, including deposits of critical minerals.

This project will collect and analyze data from hundreds of closely spaced nodal seismometers placed in key locations across southern and central New England. The instruments measure waves from earthquakes occurring all over the world, as well as background “noise” that contains important information about Earth’s structure. The project will collect data across several seismic transects that cross key geological boundaries, with nodal instruments spaced only 500 m apart. Using several seismic analysis techniques, the project will image the crust with unprecedented resolution. These new images will answer how tectonic processes have shaped the New England crust over time, including the formation and breakup of supercontinents, volcanism, and mountain-building. The project will contribute to the training of a postdoctoral scientist and of undergraduates who participate in the Research Experiences for Veteran Undergraduates (REVU) summer internship program.